Workshop: Probabilistic Perspectives in Nonlinear Partial Differential Equations

This award provides funding for US participation in the workshop/conference "Workshop: Probabilistic Perspectives in Nonlinear Partial Differential Equations" that will be held at the International Centre for Mathematical Sciences (Edinburgh, UK) from June 5-9, 2017.

The conference focuses on recent developments in Analysis, especially in the fields of probability, stochastic processes, and nonlinear partial differential equations. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at: http://www.icms.org.uk/workshop.php?id=423